Effective Use of Parallel Computing

The theme of this project at the University of Washington is parallel computing. The award will aid in providing equipment, maintenance and support staff to enhance the existing experimental computer research facility in order to coordinate and stimulate work in the area of parallel computing. The Department has groups with recognized strengths in six distinct areas of computer science: computer architecture, performance analysis, image analysis and graphics, programming environments, computer systems and theory of computation. In each of these groups, significant research will be undertaken that would not be possible without the Infrastructure support. The work will utilize a shared-memory multiprocessor, a networked multiprocessor and a number of workstations to be acquired under the grant as well as other pieces of equipment acquired from both industrial sources and from previous NSF grants. In addition to providing facilities to allow extensions of the previous contributions in each of the areas noted above, it is expected that major steps forward will be made in the overall understanding and effective use of parallel computing.